International Symposium on Electrical Energy Systems, Dhaka,Bangladesh, December, 1993

9311655 Rahman Description: This project is to support an International Symposium on Electrical Energy Systems, to be held in Dhaka, Bangladesh during December 1993. The purpose is to enhance interactions among Bangladeshi and U.S. scientists, engineers, and planners with a view to further development of an integrated system approach to electrical energy systems planning and analysis, especially as these apply to developing countries' conditions. Six speakers are to be supported for travel to Dhaka to present keynote papers. The focus areas of the presentations will include: technical and non-technical losses of electricity; system reliability and maintainability; optimum generation mix and fuel diversity; energy management and conservation; and environment sensitive planning. The sessions will include presentations made by Bangladesh speakers about the electrical energy sector in that countries, its technical problems and prospects, presentations about utility practices and research tools in developed countries, papers in the five focus areas. Parallel workshops will be held to address the five focus areas, to be followed by general discussions of the working groups' reports. Scope: The project deals with an area that is extremely important to the developing countries of the world whose consumption of electric energy is rising at very fast rate, and whose environmental problems are acute. The topic is also important to the developed world because of the environmental impact of developments on the world's climate and pollution, and because of the commercial benefits from guided development. The scientific issues to be discussed and the resulting report should also be of interest to the U.S. scientific community.